Mathematical Sciences: Analysis of Stochastic Processes and Random Fields

This research has three components. The first part will be carried out by both the investigators in association with each other and the other two, separately. The first part will study the occupation measures for Gaussian random fields. The occupation measure is the measure of the subset of the index space on which the random field takes values in a specified set. One of the investigators has already established some relationship between the occupation measure and the capacity of a set. The investigators now plan to explore these results further. Investigator Pitt will continue his probabilistic analysis of lacunary trigonometric series and will investigate further the utility of "local nondeterminism" in sample path analysis of Levy processes. Investigator Taylor plans to continue his development of analytic tools relevant to the sample path analysis of Levy processes.